Blow-up problems in geometric heat equations

DMS-0405084
Title: Blow-up problems in geometric heat equations
PI: Sigurd Angnent, University of Wisconsin (Madison)

ABSTRACT

The PI intends to study the singularities of solutions to nonlinear
heat equations which occur in differential geometry. The PI is
particularly interested in giving precise quantitative descriptions of
these singularities. Such descriptions must generally be given in
terms of so-called "matched asymptotic expansions." Methods for
computing such expansions are known in applied mathematics, but there
is a shortage of techniques for proving the validity of the computed
expansions (when they actuallly are valid).

The PI has in the past given rigorous asymptotic descriptions for a
number of nonlinear heat flows (curve shortening, mean curvature
flow). In the current proposal the PI mentions a number of new
problems which he would like to study. These new problems are on one
hand similar to the previously studied problems, but on the other hand
the old methods don't seem directly applicable. In addition, much of
the previous work was in a sense "one-dimensional" in that symmetry
assumptions were used to simplify the situation. In the next few years
the PI would like to address less symmetric problems, to see if the
matched asymptotic expansions can also be obtained in truly higher
dimensional settings.

Apart from his interest in pure mathematics, the PI is also involved
in a collaboration with biomedical engineers, in which mathematical
problems related to differential geometry and PDE in Medical Imaging
are addressed.

Broader impact: Due to his interest in medical imaging, the PI serves
as a resource for biomedical engineers (both his collaborators who are
off campus, and the medical engineering faculty & grad students on the
UW Madison campus). Knowledge of newer applications of differential
geometry in medical imaging and computer vision enhances the PI's
undergraduate classes (e.g. the planned creation of an advanced
undergraduate course on mathematical methods of medical imaging) and
in the long run inspires new problems in pure mathematics.